Differentiable Optimization Techniques for the Recovery of Sharp Features of Solutions to Inverse Problems

9704899 Lamm The main goal of this project is to develop local regularization methods for the solution of ill-posed inverse problems such as those arising in applications of inverse heat conduction and image reconstruction. The ideas of local regularization developed by the P.I. naturally lead to a "predictor-corrector" type of solution method. The idea is that a regularized solution is first obtained on a small part of the domain of the solution, after which subsequent correction is applied in order to avoid oversmoothing. This method has been seen to be as effective as standard Tikhonov regularization for Volterra problems, with improved computational performance. In addition, the scheme naturally suggests a "variable regularization" approach in which a functional regularization parameter is used to apply more smoothing in some parts of the domain and less in others. In this project the P.I. plans to continue to develop the existing theory for Volterra problems, and to extend this theory to non-Volterra problems of the type arising in image reconstruction and image deblurring. The design of a theoretically-sound adaptive process of selecting the functional parameter is an essential and difficult part of this project. Inverse problems naturally arise in numerous scientific applications, including biomedical imaging (Magnetic Resonance Imaging and CAT scans), the nondestructive thermal testing and analysis of materials, satellite sensing of remote images, and geophysical applications such as seismic and reservoir engineering. These problems are of considerable challenge to scientists because they often lead to very large computational problems which are extremely sensitive to errors in data. The aim of this project is to develop new methods for the stable and efficient solution of such inverse problems. The successful attainment of this goal would have an important impact on applications such as biotechnology, remote imaging, and materials science.